Analysis and Interpretation of Sondre Stromfjord ISR Measurements and Ancillary High Latitude Data Pertaining to Lower Thermospheric and Upper Mesospheric Dynamics

9307487 Johnson This proposal requests a continuation of core support to allow analysis and interpretation of upper mesospheric and lower thermospheric measurements obtained at high latitudes with the Sondre Stromfjord incoherent scatter radar, in conjunction with complementary measurements obtained with other ground-based instruments. The proposed studies continue and extend work currently underway in support of the CEDAR Lower Thermospheric Coupling Study and the Coordinated Analysis of the Thermosphere initiatives. Specifically, the PI proposes to continue planning, analysis, and interpretation of measurements obtained during LTCS experiments with the Sondre Stromfjord radar and comparisons with other simultaneous radar and optical measurements and theoretical modeling results. ***